Household Structure and Family Strategies

This research examines the ways in which families change in response to large scale social changes. The investigator will draw on data from U.S. census schedules between 1850 and 1900 to chart the consequences, for families, of the transformation of the Los Angeles, California environment from a small, isolated, domestic economy in 1850 to a major urban center in 1900. By examining relationships between gender, generation, and class position, on the one hand, and household composition, education, and employment, on the other, the investigator can test a theoretical model of how families meet their responsibilities under conditions of major economic upheaval. The census data for Los Angeles in the late 19th century provide a strategic entry point in which to link family change with large-scale social change. This study will test existing assumptions about family strategies, that is, the choices families make as to which family members should work as well as decisions about who should go to school, marry, have children. This research is important because it investigates the manner in which the larger economy affects the range of alternatives from which families and individuals make their choices. By viewing family decisions as a consequence of the interplay between social structure and individual choice, this research can contribute to our understanding of family life and how it has been transformed in the United States.